Applied Paleoecology: Vegetation History, Soil Carbon Accumulation and Climatic Interactions of the Peatlands on the North Slope, Alaska

Abstract ATM-9416858 Eisner, Wendy R. Ohio State University Title: Applied Paleoecology: Vegetation History, soil carbon accumulation and climatic interactions of the Peatlands on the North Slope, Alaska This award supports research under the ARCSS/PALE Program . A wide range of paleoecological indicators from selected North Slope peatlands will be analyzed in order to reconstruct vegetation history and the relationship of tundra vegetation to carbon accumulation rates. Cores and surface samples will be taken from sites currently under investigation within the ARCSS Program initiatives. Surface samples will be used to calibrate biotic indicators with vegetation type, soil temperature, thaw depth, and moisture. Pollen, spores, fungi, algae, and macrofossils will be analyzed as proxy data for the past ecosystem. Vegetation reconstruction will be compared to changing carbon accumulation rates in the cores, offering ecologists and soil scientists a very long-term monitoring device of landscape dynamics in this complex environment. The arctic tundra plays a significant role as a major repository of the world's carbon. Northern peat may still be accumulating soil carbon or may actually be losing it. This question has important consequences for global change scenarios.